Consensus and Disagreement on Probabilities: Implications for International Agreement on Policies to Mitigate Global Warming

This proposal studies the problem arising when countries disagree over their beliefs about how fast global warming is occurring. The objective is to understand how this divergence of beliefs affects the kinds of international agreements that are likely to be adopted and to explore formats or mechanisms that might lead to better international solutions even if no consensus on probabilities exists. The study also aims to pinpoint the kinds of agreements that might be possible given the current range of beliefs and mitigation costs. The major part of the project is a decision theory model of international environmental policies when probability beliefs differ. We study this in the context of a particular set of international environmental policies that are likely to be considered. The second part of the project is a beginning empirical analysis of the distribution of beliefs and mitigation costs across countries. Most of these estimates should be available from other sources, and this project hopes to uncover some straightforward empirical relationships among countries' environmental policies with respect to global warming.